Trace Metal Biogeochemistry in the Black Sea

Landing proposes to investigate trace metal redox cycling and metal-sulfide precipitation processes in the water column and sedimenta of the Black Sea as part of an interdisciplinary program to study the physical, biological, and chemical oceanography of the Black Sea. Since the last US expedition to the Black Sea focusing on trace metals in l969 contamination control during the collection and handling of trace metal samples has been greatly improved. Work in other suboxic and anoxic environments has demonstrated the redox cycling of Cr, Mn, and Fe and its effects on the distributions of other particle-reactive trace metals and radionuclides. Class-B metals exhibit solubility and sediment enrichment patterns due to metal sulfide precipitation processes. Landing plans to collect water column trace metal samples for the selective analysis of Cr(III), Cr(VI), Mn(II), Fe(II), Fe(III), Co(II), Ni(II), Cu(I), Cu(II), Zn(II), Cd(II), and Pb(II) and to quantify their distributions among particulate, colloidal, organically-complexed, and "free" solution forms. Pore-waters will be collected to relate water column depletions of class-B metals to their sediment enrichment patterns. Particulate samples (suspended, sediment trap, and sediment) will be analyzed using a series of selective leaching treatments to quantify metal association with organic, osyhydroxide, sulfidic, and refractory phases. The data will be used to develop quantitative models describing trace metal redox cycling across the oxic/suboxic/anoxic transition zone in the water column, incorporating physical mixing and microbiological transformation rates in cooperation with other participants in the project.//